Number Theory Conference in Honor of Harold Stark

Number Theory Conference in Honor of Harold Stark

Harold Stark and his students have had a profound
influence on number theory, especially on the analytic
theory of algebraic numbers. Particularly noteworthy
have been the contributions to the theory of special
values of L-functions, of Siegel zeros, and on
automorphic methods.

This conference will serve as a followup to the successful
meeting on Stark conjectures held two years ago with NSF's
support at Johns Hopkins, but will have a more broader
agenda, covering all of Stark's work and related areas.
There has not been any recent meeting devoted to this
area, and in view of the recent progress that has been
achieved, a conference summarizing current knowledge and
directions of research will help spread the information
and generate new ideas.